Japan JSPS Program: "Sidescan Sonar and Multichannel SeismicInvestigations of the Northern Izu-Bonin Arc-Trench System"

Japan JSPS Program: "Sidescan Sonar and Multichannel Seismic Investigations of the Northern Izu-Bonin Arc-Trench System" This award will provide supplementary support to enable Dr. Adam Klaus of the University of Hawaii to conduct collaborative research with Dr. Asahiko Taira for 12 months at the Ocean Research Institute, University of Tokyo in Japan. After collecting sidescan sonar and multichannel seismic data, they will test Dr. Klaus' hypotheses on the structural and volcanic processes of intra-oceanic island arc rifting and the forearc sedimentation processes and submarine canyon formation. The Izu-Bonin Arc-Trench is one of only a few places in the world where active rifting of intra-oceanic island arcs presently occurs. The University of Hawaii has already collected data from various sections of the system, but the data is not complete. Complimenting the University of Hawaii's data, Dr. Taira began a data acquisition program for the Izu-Bonin Arc-Trench System in 1991. The data collected using Ocean Research Institute's state-of-the-art swath-mapping and multichannel seismic data acquisition systems, when combined with existing data, will provide the necessary data to test Klaus' hypotheses and refine his models of the structural evolution of backarc rifts and the tectonic control of forearc sedimentation and submarine canyon evolution.